Numerical Methods for Nonsmooth Optimization

Many interesting optimization problems are nonsmooth, i.e. the functions to be minimized are not differentiable in some parts of the domain. Application areas are diverse, including structural analysis, control engineering, operations research and numerical analysis. The main goal of the proposed research is the dsign of efficient algorithms for some important classes of nonsmooth optimization problems. This is possible only by taking full advantage of the structure which is present. Because of the lack of smoothness, standard algorithms are not applicable.